Center for Performative Design and Engineering Technology: Pioneering Performative Processes in Design and Engineering Technology Education

The School of Technology and Design at New York City College of Technology proposes to create a new Center for Performative Design and Engineering Technology that will pioneer performative design education. The project takes as its inspiration the broad focus on laboratory-based learning that brings technological education to a higher level of integration and broader faculty engagement across an entire division. The Center will become the focus of interdisciplinary project-based learning for faculty and students from its nine constituent departments where they will conduct research projects using state-of-the-art technologies in cross-cutting applications that mirror industry practice. The project will produce a laboratory design to support interdisciplinary research by configuring equipment and instrumentation for optimal collaborative use. A faculty team will create a web-based tutorial system for asynchronous learning to accompany interdisciplinary applications of cutting-edge technology. They will also design a new interdisciplinary capstone course and four cross-disciplinary projects for baccalaureate-level students.

This project will provide a model for other institutions with similar programs to emulate. By bringing project-based interdisciplinary team collaborations to the fore, the project will contribute to an on-going paradigm shift in the way engineering design is taught. The project will also broaden participation since New York City College of Technology serves a high percentage of underrepresented minority students and is one of the nation's top producers of underrepresented minority associate degree graduates in STEM fields.